Physical Properties of Magnetic Ternary Graphite Inter- calation Compounds

Magnetic ternary graphite intercalation compounds (GICs) make it possible to allow the study of the cross-over from 2-dimensional (2D) to 3-dimensional (3D) systems, the testing of existing theories of 2D physics, and investigation of the associated randomness in 2D systems. The proposed study is to synthesize and measure the physical properties of magnetic ternary GICs such as a random mixture GICs (RMGICs) and graphite bi-intercalation compounds (GCICs). The measurements will be made using ac and dc magnetic susceptibility, ac calorimetry, electrical resistivity, neutron scattering, X-ray scattering, and electron microprobe techniques.